Acquisition of a MALDI/TOF Mass Spectrometer For Research and Education in Biochemistry and Chemistry

With support from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at Vassar College will acquire a MALDI-TOF Mass Spectrometer. This equipment will enhance research in a number of areas including a) the identification of trapped intermediates during the refolding of tick anticoagulant peptide; b) the identification and characterization of organometallic complexes of giant fullerenes; c) the molecular weight determination of novel synthetic polymers; and d) the analysis and identification of organic archaeological materials.

Mass spectrometry (MS) is a technique used to probe intimate structural details and to obtain the molecular compositions of a vast array of organic, bioorganic, and organometallic molecules. The results from these studies will have an impact in a number of areas including materials chemistry, polymer processing and biology.